EAGER: Collaborative Research: Using PDE Descriptions To Generate Code Precisely Tailored To Energy-Constrained Systems Including Large GPU Accelerated Clusters

Modern computer system architectures are forcing computational scientists to move scientific applications
from traditional homogeneous cpu-based systems to heterogeneous multi-core/accelerator architectures.
Obtaining performance in the presence of accelerators requires close attention to
the memory hierarchy and chip-level parallelism to reach even a modest fraction
of the potential performance. As a result, coding tasks which were once the province of
lone graduate students in a single discipline now require interdisciplinary teams of people.
Project Chemora will explore the design of a new application framework for automatically
creating highly optimized code for high-end computational machines. The system
will use as input a set of partial differential equations (PDEs) that describe a
problem, it will then construct a machine-specific abstract performance model, and using these
it will generate well-tuned code and execution configurations for accelerated
(e.g., hybrid CPU/GPU) computing clusters at various scales. Chemora will
improve programmability in this simplified domain by decoupling the science and
computer science at a high level, thereby reducing the complexity and number of issues scientists need to
collectively understand and allowing individual scientists in the team to focus on their area of
specialty. Chemora will improve performance (both wallclock time and energy) for
systems with both simple and complex sets of equations by making use of detailed
information describing the problem and machine, and will provide improved load
balancing through the AMPI framework.

The Chemora project has chosen the Einstein equations as the primary science driver because
these equations are one of the more complex PDE systems, one with many
hundreds of terms, and a problem scale that is challenging to optimize for most
compilers. Achieving this vision for a general scientific problem would indeed
be a "Grand Challenge" in computational science, but in order to give our
research a sharper focus we have chosen as a science driver the
simulation of Intermediate mass ratio Binary Black Hole (IBBH) systems. Such
systems, consisting of a black hole of mass 100 to 1,000 solar masses orbited by
a smaller black hole of mass 5 to 20 solar masses are expected to be important
sources of gravitational waves for advanced Laser Interferometer Gravitational
Wave Observatory (LIGO) and the Einstein Telescope (ET). Accurate modeling of
the waveforms from IBBH systems will be necessary in order to extract
gravitational wave signals using template-matching data analysis techniques.